NSFnet Training Workshop for Small Colleges

9318905 Lupton Assoc. of Computer and Information Science Depts. in Minority Institutions (ADMI) Training and Planning Workshop for Small Colleges Use of the Internet and NSFNET The Associations of Computer and Information Science and Engineering Departments at Minority Institutions (ADMI) was formed to assist minority institutions in the development and strengthening of their research and education programs. As part of its Annual Workshop ADMI, a training and planning tutorial on networking is proposed for small institutions located predominantly in the northwest area of the nation. The tutorial will provide an overview of networking and its use and help to develop plans for Native American colleges, reservation institutions of higher education, and others to become effective network users. Communication links between small colleges and larger institutions are of vital importance which allow educators to cross over barriers that exist between two year colleges, four year colleges, and research universities. ***